Acquisition of Electronics Packaging Equipment

9512326 Fillo This proposal requests equipment for chip assembly, such as a direct chip attachment station, a liquid solder and epoxy dispensing system, a programmable furnace for solder reflow experiments, oven, a laser cutting/ablative tool for circuit boards, and an electroplating station. The equipment university will provide unlimited access for all the students and the versatility of the equipment will enable more innovative research approaches to chip assembly and packaging. ***